I: The decidability problem of the dot-depth hierarchy

This project will apply Ehrenfeucht-Fraisse games to the study of the decision problem for aperiodic monoids. The resolution of this problem would have implications for formal language theory, automata theory, and boolean circuit complexity.